Improvements to Surface Ozone Measurements for GLOBE.

In response to an Announcement of Opportunity for the Global Learning and Observations to Benefit the Environment Program (GLOBE) this project is designed to meet GLOBE goals and objectives of linking scientists and schoolchildren in a global information network with the ultimate goal of better understanding Earth's environment and changes that take place within it. This proposal will continue the development of surface ozone observation protocols using a chemically sensitive paper that changes color in response to ozone exposure. Ozone levels will be estimated by comparing the paper color to a reference color chart. This will complement and be supported by on-going work at NASA to separate stratospheric ozone from tropospheric and lower atmosphere ozone signals, all of which are detected by space-borne sensors, but are indistinguishable without ground data such as those provided by this method. The project has the endorsement of the International Global Atmospheric Chemistry Program Steering Committee (IGAC). Tropospheric and surface ozone are important for different reasons, and introducing students and teachers to the difference in effects of ozone at these different altitudes and to the different sources of ozone is valuable to the learning process. Accurate observations of surface ozone on the spatial and temporal scales afforded by the GLOBE program will provide a significant advance for science and its study of ozone's effects on health and biological systems in general.